The Sunergism of Analytic and Numerical Technologies in General Relativity

Nonlinear interactions in general relativity will be studied using a code that simulates the implosion and re-explosion of a vacuum. axisymmetric gravitational wave. As the wave amplitude is increased, the wave begins to hold itself together (temporarily) by its own mass energy. If the amplitude is large enough a black hole will form and radiate off its asphercity. Another code, currently being tested against perturbation theory, is being developed specifically to study black hole spacetimes. It will be used to investigate the radiative properties of very highly distorted single black holes and eventually to simulate the head-on collision of two black holes and calculate the gravitational waves emitted.